Regional and Local Diversity in a Patchy Environment: Serpentine Plants in California

ABSTRACT

Susan P. Harrison

DEB 0075369

Outcrops of serpentine soil in California support a rich flora of endemic
species, many of which are naturally rare. This study will test the
hypothesis that species diversity in this specialized flora is shaped by the
island-like nature of serpentine outcrops, among other factors. I will
analyze patterns of species diversity in the serpentine endemic flora across
the entire state, considering diversity at both the regional scale
(subcounties) and the local scale (50 x 20 m plots). The regional data will
be gathered from published sources and analyzed with spatial statistics; the
local data will be gathered by intensive field sampling at 24 sites
distributed around the state. Path analysis and other statistical
techniques will be used to determine the relationships between regional
species diversity, local species diversity, and environmental variables
(e.g. soil chemistry, climate, topography, and the spatial distribution of
serpentine)."